ROLE: Facilitating the Understanding of Complex Adaptive Systems Through Computer Simulations

Interactive computer simulations are increasingly being used to teach students
scientific principles, but relatively little systematic research has done on
the factors that make a simulation pedagogically effective. This research
explores how to design a computer simulation so that students learn the
scientific principle underlying it, and transfer this principle to new
domains. Principles from the interdisciplinary science of complex adaptive
systems are chosen because these mathematical formalisms are applicable across
a wide range of domains. Laboratory experiments with students will explore how
active exploration of one simulation benefits or hinders understanding of a
subsequently presented simulation based on the same principle. Experiments
will explore the roles of concreteness and idealization, simulation similarity,
and individual differences in abstract transfer. The scientific goal of the
inquiry is to gain an understanding of how perceptual experience can lead to
abstract conceptual understanding, and how conceptual understanding can change
perceptual experience. The practical goal is to translate this understanding
into general educational principles for integrating computer simulations into
classroom activities.